Dynamics of ultradense matter produced in relativistic nuclear collisions

0140046
Zhang

During the initial stage of relativistic nuclear collisions, enormous amount
of energy is deposited in the collision region and the temperature and
density can be high enough that individual hadrons lose their identities.
Instead of being confined in hadrons, quarks and gluons can now move
"freely" in this collision region. The matter thus produced is called the
Quark-Gluon Plasma. The transition between hadronic matter and the
Quark-Gluon Plasma gives us insight into the interactions between quarks and
gluons under extreme conditions. It is also useful for the understanding of
processes going on in other high temperature and/or high density regions,
for example, in the early Universe and in the cores of neutron stars. To
extract information about the Quark-Gluon Plasma from the experimental
observables, to bridge the initial quark and gluon distributions and the
final hadron distributions, the PI will investigate the effects of the
space-time evolution of the strongly interacting matter produced in
relativistic collisions. In particular, a transport model approach will be
further developed and used as the major theoretical tool for a detailed
study of the transient formation and evolution of the finite size,
ultradense system produced in relativistic nuclear collisions with
nonequilibrium, viscous effects automatically taken into account. The
research will advance the understanding of strong interaction physics that
is the focus of current experiments at the Relativistic Heavy Ion Collider
at Brookhaven National Laboratory and the nuclear physics program at the
future Large Hadron Collider at CERN.